Finite Element Application to Sheet Metal Forming

This research investigates a computationally efficient and numerically reliable procedure for modeling the forming process of sheet metals via the finite element method. The research work consists of four different areas: 1) study of robust shell elements by considering elasto.plastic, large deformation and including both membrane and bending actions, 2) modeling of interfacial friction effect, 3) improvement in computation efficiency, and 4) development of an interactive graphics with a remeshing technique.